IEEE AP-URSI Conference July 11-16, 1999 in Orlando Florida, Special Session on Wireless Communications and Information Systems

9972367
Wahid

This grant is to support the travel expenses of invited speakers to a special session on Wireless Technology. This special session will be held in conduction with the 1999 IEEE Antennas and Propagation Society International Symposium, in Orlando, FL. About 1000 people attend this meeting annually. Although there will be 10 presentations in this special session, the PI requested funds for only five speakers who work in research areas different form those normally discussed in this IEEE APS meeting.
***